Continued Investigation of Miocene Extensional Tectonism in the Northeastern Mojave Desert and Its Relationship to Synkinematic Plutonism

The interaction of major strike-slip faults and regional low- angle detachment faults in extending terranes is of considerable interest. This renewal project focuses on the Kingston Range detachment fault and associated plutons that is located near the enigmatic eastern terminus of the Garlock fault, and involves additional field mapping and laboratory analysis in the Shadow Mountains area. Results will document the complex stratigraphic and structural relationships between crustal extension, high-level synkinematic plutonism, and extension-related terrestrial sedimentation.